Experimental Partnership - Internet Interactive Team Video

EIA-0071954
John R. Kender
Columbia University

TITLE: Experimental Partnership: Adaptive Interactive Team Video

This project will create a collaborative virtual environment for group work and/or group study, in which semantically structured videos concerned with instruction, design, or prior discussion of a team effort are delivered over heterogeneous Internet links to heterogeneous platforms in an efficient and adaptive manner. The proposed system will enable: the measurement of the effectiveness of semantic summarization and indexing on the access and use of video resources, the measurement of the effectiveness of semantic summarization and indexing on the access and use of video resources, the measurement of the quality of service effects which heuristic forecasting and monitoring of team work actions will have on video delivery, and the measurement of the degree of success of system resource management algorithms for the perfecting and progressive refining of video segments into the caches of clients with varying capabilities from a server cluster subject to resource contention under varying loads. Additionally, this project will provide an efficient distributed environment useful for collaborative and educational purpose in its own right-one that will be tested in the PI's own courses.